CAREER: Forward Physics at RHIC and LHC

Nuclear physicists love to look inside protons and neutrons by smashing
particles into them. One goal of this is to understand the force that
holds them together and gives them most of their weight. Through a
quirk of quantum mechanics, relativity and the uncertainty principle
what we see (or rather what a particle sees) inside a proton depends
upon how fast we approach it. At low speeds the particle typically sees
a lot of empty space a few quarks (which carry the proton's electric
charge and most of its momentum) and some gluons (which carry the color
force that holds quarks together). These gluons don't carry much
momentum and so by the uncertainty principle they have a large size. If
a particle hits one of the quarks or gluons then lots of particles will
be made.

For collisions at higher speeds more gluons appear out of the empty
space so that the proton gets crowded. This makes it harder for a
particle such as an electron to get through the space between the
gluons. At extremely high speeds the gluons are so crowded that they
fuse together to form a glass like state, the Colored Glass Condensate.
Evidence for such a state was first seen in electron-proton collisions
in Germany. On Long Island there is a machine called RHIC that collides
gold atoms together. The nucleus of a gold atom contains many protons
and neutrons close together. In a nucleus it is easier for the gluons to
form a glass since gluons from different protons and neutrons can
overlap.

Michael Murray is a member of the BRAHMS colloboration which has seen
evidence for this effect at RHIC. NSF funding will enable Michael to
study these effects at a higher energy collidor that is currently being
built near Geneva. This work may help us understand the color force in a
new way.

Michael is also interested in homeland security. He will be developing a
course on "dirty bombs" for first responders. Such a bomb could be as
primitive as a stick of dynamite surrounded by radioactive materials or
a sophisticated device that produces radioactive aerosols that hang in
the air for days. In either case proper training of police and
firefighters will help them to alleviate the damager and panic caused by
such an attack.

--
Bradley D. Keister
National Science Foundation
4201 Wilson Blvd.
Arlington, VA 22230
+1 703 292-7377 (office)
+1 703 292-9078 (fax)